Development of an Artificial Electrochemical Synapse

An electrochemical junction will be formed which mimics an neural synapse. This device will be on a scale of a few microns wide by a fraction of a micron thick. The ionic solution will be sealed into a stable gel structure. The device will be in a form that can be produced as arrays and incorporated into standard electronics to provide a physical model for the synapse that can be tested in conjunction with studies of neural networks. Reinforcement of individual junctions and short-time modification of network properties will be incorporated to allow studies of "memory" and "mood" in networks.